Gordon Research Conference on Physical Metallurgy "Time Dependent Behavior in Metals", June 26 - July 2, 1994, at the Holderness School in Plymouth, NH

9412394 Storm Support is provided for the 1994 Gordon Research Conference on Physical Metallurgy "Time-Dependent Behavior in Metals: Measurement and Modeling for the Long Term". The goal of this conference is provide a forum for active discussions on state-of- the-art experimental and modeling techniques aimed at understanding complex damage phenomena that evolve in metals over long times. Such damage often involves the coupling of microstructural changes, surface chemical or electrochemical reactivity, plastic deformation, solute segregation, microdamage evolution and hydrogen interactions leading to crack formation and growth. The speakers and discussion have been organized around critical topics, including microstructural evolution under applied stress and strain, crack formation and growth at elevated temperatures, the interaction of environment with such cracking, the effect of solute elements on deformation and fracture, environmentally-induced cracking, as well as localized corrosion under stress. A focus of this program is the integration of physical and mechanical metallurgy perspectives which have been separated in previous years. %%% There is a pressing need to consider these problems from an interdisciplinary and scientific perspective because the national infrastructure is aging and long-life systems are being contemplated and designed with advanced materials. Although such problems are complex from a scientific viewpoint, researchers in universities, industry and national laboratories are now addressing them with exciting high resolution experimental tools, theory and simulation modelling. ***